Fundamental Stellar Parameters from the CHARA Array

This award supports the Georgia State University's Center for High Angular Resolution
Astronomy (CHARA). The CHARA Array consists of six 1-m aperture telescopes
operating in the optical/near infrared and arranged in a Y configuration which provides
15 baselines from 33 to 331 meters in length. In terms of the number and aperture size of
its telescopes and the length of its baselines, the CHARA Array is among the most
powerful facilities of its type in the world.

Built with funds provided by Georgia State University (GSU), the NSF, the W.M. Keck
Foundation, and the David and Lucile Packard Foundation, the CHARA Array has
undertaken several extensive observational programs with a broad impact on stellar
astrophysics. These include measuring the oblateness and other physical parameters
(including gravity darkening) for the rapidly rotating stars Regulus, Alderamin, and
Vega; checking the Baade-Wesselink method for calibrating the Cepheid periodluminosity
relation; detecting the circumstellar envelopes of Delta Cephei and Polaris
(two Cepheid variables) and showing that emission from these envelopes must be
modeled to avoid biases in the Baade-Wesselink method; discovering that solar
metallicity M dwarfs are larger than similar mass but lower metallicity M dwarfs which
implies an additional opacity source not included in current models; and measuring the
angular separation between the components of the binary star 12 Persei to an accuracy of
0.05% their separation thereby improving the accuracy of their derived masses.

During the award period, several science programs will be carried out which continue to
capitalize on CHARA's unique capabilities. These include the measurement of stellar
angular diameters of brighter stars to better than 1% accuracy. This will allow the critical
testing of stellar atmosphere codes (including effective temperatures and brightness
profiles) at temperatures from M to B. Evolved stars will be included as well to
characterize the scale heights of their atmospheres. Pulsations of more Cepheid variables
will be measured to further calibrate the Baade-Wesselink method. The properties of
disks surrounding Be stars will also be characterized. With regard to binaries, CHARA's
high angular resolution will be used to resolve spectroscopic binaries, which will in turn
allow high quality measurements of stellar mass, luminosity, and radius for stars across
the Hertzsprung-Russell Diagram. Known extrasolar planetary systems will also be
inspected to ensure face-on binaries are not contaminating the samples.

The training of the next generation of scientific and technical experts in interferometry
will also continue. CHARA is enhancing scientific awareness through the incorporation
of its results into the large undergraduate courses taught at Georgia State. Thousands of
public visitors to Mt. Wilson will also have the opportunity to interactively learn the
principles of interferometry through a display at the CHARA Exhibit Hall on Mt. Wilson
(which also houses the 20-foot Michelson Stellar Interferometer used at the 100-inch
telescope).